CAREER: Dynamic Contact Modeling and Experiments on Miniature Systems

The performance and durability of microdevices in sliding contact is
strongly dependent on interfacial phenomena like adhesion, friction, wear,
and friction/vibration interaction. It is becoming increasingly recognized
that problems of stiction, adhesion and other critical phenomena such as
bouncing vibrations occur dynamically in the presence of time-varying loads
and motions. As high-speed contacts operate under ever more challenging
conditions, contact or sticking can, in principle, occur at any time.

Intellectual Merit: In this research, a systematic approach to dynamic
contact studies of microsystems will be performed based on system
independent interfacial models that are coupled to the system dependent
dynamics of the interface. A unique feature of the proposed approach is
the direct incorporation of the intermolecular (adhesion) forces and
kinetic friction models based on continuum mechanics into a dynamically
moving contact interface. This will enable contact length scales from
micrometer to millimeter range and beyond to be covered. Also, two unique
microtribometers will be built to measure key dynamic properties of
realistic miniature systems, and to conduct dynamic contact and friction
experiments for model verification and for studying such phenomena in
HDI's, and MEMS. The outcome of this research is to: (a) Develop a
rigorous kinetic friction model for microdevices; (b) Use the model to
predict interfacial forces, damping and kinetic friction, thus providing a
powerful tool for controlling adhesion, friction and wear in microsystems;
(c) Predict the motions of contacting and pseudo-contacting HDI's and MEMS
as a function of design parameters like roughness, material properties, and
system dynamic properties, thus avoiding large vibrations and impact forces
and the associated catastrophic consequences.

Broader Impacts: The research plan will advance the knowledge of tribology
and microtribolgy, while the education plan of this research will
disseminate it outside the research group and beyond the University. The
educational goals of increasing the awareness of micro/nanotribology and
engineering in general, will be accomplished by: (a) establishing an
outreach K-12 program targeting students grades 1 through 5 (cub-scouts)
and high school students, (b) enhancing a basic tribology course using
modern teaching techniques and also recruiting underrepresented students to
work on projects and disseminate the information to the public, (c)
developing a new graduate class in friction/vibration for miniature systems
(microtribodynamics) that will include current research findings, and (d)
actively participating in local and professional societies to promote
engineering and tribology.

The proposed integrated research and education plan will advance further
the development of micromachines, which has a major potential impact on
society through transformation of a wide range of technologies, and at the
same time increase the awareness and significance of friction and tribology